An Inventory of State Network Infrastructure and Strategic Planning for the National Information Infrastructure

Abstract FARNET, Inc. NCR-9509138 PI: Jim Williams FARNET proposes a three-year project to design, develop and deploy an on-line guide to telecommunications infrastructure, Internet penetration and strategic directions for each of the United States. No comprehensive resource exists which describes state networking infrastructure, current capabilities and strategic intentions. FARNET will proposes to collect information from each of the states, organize the information and provide gopher and world-wide web servers to the Internet community. FARNET will be responsible for the collection and organization of the data, they propose that the InterNIC Database and Directory Services (AT&T) be the repository of the collected information. The document will have value when initially produced, the nature of networking in the United States is one of change. The document will have to be maintained and updated as State infrastructure or intentions change, it will be of even greater value. The 3 year project will terminate with an information resource that will be self sustaining with information maintained by each of the states.